Tenth Riviere-Fabes Symposium on Analysis and PDE, Spring 2007

Tentth Riviere-Fabes Symposium on Analysis and PDE
University of Minnesota, Minneapolis, Mn.
April 20-22nd, 2007.
Abstract

The proposal is to support the attendance of junior faculty, post-docs and graduate students at this year's Riviere-Fabes Symposium at the University of Minnesota.

The symposium will center on lectures by 2 distinguished senior researchers and 4 leading younger researchers on topics of current interest in harmonic analysis and partial differential equations. Past symposia in this series have had considerable influence on the field
and it is expected that this will continue.